Workshop on Cyberinfrastructure for Polar Sciences

The Polar Cyberinfrastructure Program at the National Science Foundation has the potential
to transform polar research, by facilitating the transmission and integration of
tools and knowledge across the polar and cyberinfrastructure communities. Community input is essential
to the process of realizing these goals, to ensure that the infrastructure investments meet
the on-the-ground requirements of scientists working in each domain.
In this regard, the PI proposes to organize a workshop to identify and define
priorities for how to further and enable better polar science through cyberinfrastructure.
The workshop will produce a final report to the Polar Cyberinfrastructure Program. The workshop and report will address
engagement and building bridges between computer and polar sciences, what can be accomplished
in the short-term (1-5 years) and long-term (5-10+ years). Topics that will be discussed include
big data and data access, software tools for data and metadata acquisition, workflow support,
data analysis, data visualization, and modeling, computing capabilities, interoperability
with data from other domains, as well as policies and procedures that address the polar scientists’
and engineers’ concerns regarding, for example, data sharing, data citation, intellectual
property, and career advancement. Participants from the broadest range of science domains will be engaged, including early career scientists.
The format of the workshop will be similar to those organized through the EarthCube program, with presentations and breakout sessions.